Japan (JSPS) Postdoctoral Program: Ultrafast Nonlinear Optical Properties of Organic Polymers

This award will provide supplementary support to enable Dr. Scott Halle of the Massachusetts Institute of Technology to conduct collaborative research with Dr. Takayoshi Kobayashi at the University of Tokyo. They will investigate the Ultrafast Nonlinear Optical Properties of Organic Polymers using femtosecond coherent transient spectroscopy (FCTS). Organic semiconductors would prove useful in optical signal processing were their optical properties, such as index of refraction, optical coefficients, and response times, sufficiently nonlinear. However, the nature of the nonlinearities for organic semiconductors has yet been little investigated, partially because the wavelengths of the femtosecond lasers ordinarily used for these studies are inappropriate for the organic semiconductors. The FCTS technique, however, which was developed by the Japanese collaborator, is suitable for use with the organic materials.